Chain-Folded Polymer Crystal Electronic Devices

The PI's will investigate chain-folded polymer crystals as possible electronic devices. It has been demonstrated experimentally that single crystals of polymers show negative resistance and hence can be used as active devices. Our recent theory <3> shows that the operating principle of these devices is tunneling and that there are potential practical device applications possible. Lacking further information on these systems beyond the original measurements, it is mandatory to obtain a complete set of experimental parameters, before we will be able to use these crystals in devices. The work will consist of growing high-quality polyethylene crystals and testing their current-voltage (IV) characteristics for a variety of parameters: quality of the crystals, thickness of the crystal, choice of different metal electrodes, and temperature dependence. Secondly, in order to establish switching speeds, we want to make ac measurements on these devices by time domain spectroscopy (pulse method) using automated instrumentation. The instrumentation for this method will be built, using the methods pioneered at the National Bureau of Standards by Mopsik, and will be useful for general use in dielectric measurements.